Design of Reliable Distributed Systems Through Software Testing and Crash Recovery

Developing error-free distributed software and coping with processor failures are among the important problems encountered in the development of reliable distributed systems. The main objective of this research is to design and build reliable distributed systems by software testing and recovering from processor failures. The analytical component of this research is expected to provide a better understanding of the issues involved and suggest different approaches to testing distributed programs and crash recovery. The experimental component of this research effort involves the implementation of several techniques and is expected to result in the development of software tools for the above mentioned problems in distributed computing systems.